Laboratory Modernization of Undergraduate Experimental Physics Laboratories

Northwest Nazarene College will purchase six high-speed oscilloscopes, a high-resolution gamma-ray spectroscopy system, and an X-ray spectroscopy system. This equipment will be used to improve instruction in both lower-and upper-division physics laboratory courses. Courses affected include a microcomputer interfacing laboratory and a spectroscopy laboratory. In addition, the equipment will be used by upper-division physics majors for required individual projects. Northwest Nazarene College will match the NSF grant with an equal amount of funds.